U.S.-Korea Cooperative Research: Physics in (2+1) Dimensions

This proposal requests funds to permit Dr. Roman Jackiw, Department of Physics, Massachusetts Institute of Technology, to pursue with Dr. Choonkyu Lee, Department of Physics, Seoul National University, for a period of 24 months, a program of cooperative research on physics in (2+1) dimensions. Major effort will be given to studying classical and quantum aspects of gauge field theories with the Chern-Simons term and of (2+1)-dimensional Einstein gravity. By generalizing recent work done by themselves and others, the col- laborators will attempt to expand knowledge about physical/ mathematical properties of non-trivial classical solutions, e.g., vortex solutions, in these theories. Physics in two or three space-time dimensions should be significantly simpler than that of the four-dimensional world. A hopelessly difficult four-dimensional problem may become easily managed in lower dimensions. Three-dimensional field theories, to be studied in this research, also may have possible physical applications. Drs. Jackiw and Lee are highly respected scientists in the field of the research. They have an impressive record of successful collaboration. This project is relevant to the objectives of the U.S.-Korea Cooperative Science Program which seeks to increase the level of cooperation between U.S. and Korean scientists and engineers through the exchange of scientific information, ideas, skills, and techniques and through collaboration on problems of mutual benefit. Dr. Lee's participation in the project is supported by the Korea Science and Engineering Foundation (KOSEF).